Multi-scale Phenomena in Macromolecular Fluids and Nano-Composite Materials

The goal of this research is the development of a mathematical
theory, models, and computational tools which underpin the design and
of macromolecular materials and nano-composites. These materials are
comprised of anisotropic molecules (nematic polymers), which undergo a
spontaneous disorder-order transition above a critical concentration.
Materials made from nematic polymers achieve their properties through
the collective molecular alignment structure. Specific molecular
elements yield diverse property enhancements, from strength (the
Dupont product Kevlar and spider silk), to electrical conductivity
(carbon tubes and conducting polymers), to barrier penetration
properties (discotic clay platelets). The major technological
challenge is to extend results with fibers to other geometries such as
films and molds. However, in typical laminar processing flows, the
molecular response is highly sensitive to flow type and strength, and
to molecular properties such as shape and concentration. In addition
to complex dynamics, during flow processing there is a spatial
conflict between interior flow response and molecular anchoring
conditions at solid boundaries. The result is that instead of a
uniform molecular orientational distribution, as in fiber processing
flows, film and mold flows always generate morphology on length scales
between the molecules and the processing devices. These ubiquitous
structures are not understood, either theoretically or experimentally,
yet they dictate the effective properties of the end-use materials.
The research supported by this award will help to understand the dynamics
and structures that occur in typical laminar flows of nematic
polymers.

Modern high-performance materials and nano-composites are primarily
designed with simple elements, from rod-like to platelet molecules.
Remarkable property enhancements have been achieved thus far in
laboratory-scale experiments, with increased strength and durability,
the ability to shield heat or gases, and to tune electromagnetic wave
transmission. The technological challenge is to scale these
experimental results to industrially viable processes and materials.
The challenge to mathematics and computational science is to build a
solid foundation of theory, modeling, and simulation tools from which
to design and control the processes and final material properties.
The theory of flowing molecules in confined spaces is still unable to
predict and control the molecular structure created during flow
processing. Yet micron-scale molecular structures always occur in
processed films and molds of nano-composites. Furthermore, the bulk
material performance properties as well as their failure and damage
modes are dominated by the molecular structures generated in
processing. The award will support a research program combining
theory, modeling, simulations, and comparisons with laboratory data in
the dynamics and structure properties of nematic polymer materials and
nano-composites in processing flows. These results will be the basis
for the next phase of the materials pipeline, where bulk material
properties are deduced from the molecule properties.